Scientific Computing Research Environments in the Mathematical Sciences (SCREMS)

The Department of Mathematics at the University of Pennsylvania will
purchase a four-processor computer and appropriate auxiliary
hardware/software that will be dedicated to intensive numerical and
symbolic computations in the mathematical sciences. The equipment
will be used for several research projects, including in particular:

a) The work of Mary Pugh to investigate both surface tension effects
in interfacial flows, and some problems in computational neuroscience.

b) The work of Charles Epstein on CR structures and contact geometry.

c) The work of Ted Chinburg, Fan Chung Graham, and Ron Donagi to
investigate problems in algebra and combinatorics.

d) The work on Christopher Croke, Dennis DeTurck, Herman Gluck, and
Wolfgang Ziller using computers to study a variety of questions in
Riemannian geometry.

Carrying out these projects will also involve a number of graduate
students. We view their experience with these computer projects as a
vital part of research and of their education as research
mathematicians